Coupling Microbiological, Architectural, and Mechanical Properties of Biofilms

In this project, we will develop computational tools for modeling the complex
interactions between the microbiological, architectural, and mechanical
properties of bacterial biofilms. The tools will combine models for
multi-species biofilm growth and development, elasticity properties that
depend on the different species and their products, e.g. EPS, and the
interaction of the biofilm with overlying fluid flow. As a test case, the
tools will be used to study the behavior of heterotroph/autotroph two-species
biofilms commonly used for nitrogen removal in activated sludge reactors.
These biofilms exhibit complex behavior in their tendency to develop stratified
colonies where the fast growing heterotrophs cover the slow growing and brittle
autotrophs. The heterotrophs protect the autotrophs from fluid stresses, and
also consume the products generated by the autotrophs as they remove nitrogen
from wastewater.

Biofilms are a ubiquitous form of life that impact humans in many ways.
Biofilms are responsible for nitrogen loss from agricultural fertilizers,
deplete oxygen in streams, cause disease in humans and plants, and foul pipes,
heat exchangers, and ship hulls. It is estimated that biofilms cost the U.S.
billions of dollars annually in equipment and product damage, energy losses,
and human infections. The tools developed in this project will be general
enough to be applied to a wide range of multi-species biofilm communities, and
will be useful in improving our understanding of these complex systems. In
this project, the tools will be applied to activated sludge reactors,
which are systems used for the treatment of wastewater. In this system,
bacteria and other microorganisms remove harmful substances for purposes
of water reclamation. For maximal efficiency of these reactors, the right
balance of autotrophic and heterotrophic bacteria must be found. The tools
developed in this project will improve our understanding of this system and
aid in the identification of the optimal operating conditions.